Development of Caged Neurotransmitters for Two-Photon Photolysis

The cell was discovered in the C17th by the Dutch scientist van Leeuwenhoek
when he invented the microscope. The use of lenses and microscopes to make
scientific observations has had a profound effect on man's history and his
understanding. The discoveries of Galileo, Newton and Einstein are the best
examples of this. The 1990s were declared the decade of the brain and by
coincidence, in 1990 a new microscope was invented which allowed scientists
to see far deeper and more clearly into (brain) tissue than ever before.
This grant is concerned with the development of new chemical compounds that
will exploit the unique advantages of this microscope for the very first
time. Specifically, we will use organic chemistry to make the
neurotransmitters that are biologically inert until they are activated by
light. These molecules can be used to release the neurotransmitter deep
inside cells and so stimulate a single synapse in the brain in a
reproducible and precisely controlled way. The synapse is the basic unit of
all the electrical circuits in the brain. The ability to use these chemicals
to stimulate single synapses in living brains (from mammals such as rats or
mice) will allow us to start to develop realistic theories of the basic
molecular and cellular mechanisms which underlie neuronal network formation,
learning and memory.